Deep Ocean Rock Samling System for Underwater Vehicles Based on Abrasive-Waterjet Cutting

This proposal is to determine the feasibility of building a high pressure abrasive water jet cutting device for use as a rock cutting, sampling system for use on scientific submersibles. Pressure chamber testing and submersible interface design are proposed.